Conference "Around Dynamics"

Abstract

Award: DMS-0110251
Principal Investigator: Mikhail Lyubich

This conference on dynamical systems at SUNY Stony Brook in 2001
is held in honor of John Milnor and emphasizes areas of dynamics
close to his own work: holomorphic dynamics in one and several
variables, non-uniformly hyperbolic dynamics, fluid dynamics,
geometric function theory and thermodynamical formalism, related
topics in topology and in biology.

Dynamical systems are mathematical models of phenomena that
evolve in time according to deterministic laws. Some aspects of
this part of mathematics are extremely classical, since the
differential equations used by Newton to describe motion under
the force of gravity lead to a dynamical system. Although these
models are entirely determined by starting conditions and the
rules for evolution over time, detailed prediction is difficult
and we are obliged to seek qualitative understanding. Over the
last twenty-five years much attention has concentrated on systems
whose evolutionary rule is defined by a polynomial function of a
complex variable, and on the behavior of these systems as the
polynomial's coefficients are changed. This class of systems has
been found to be a universal model in some ways for the behavior
of families of dynamical behavior depending upon a parameter, but
despite their simplicity of definition much remains mysterious
about holomorphic dynamical systems.